Searching for Early Ionization with the Primeval Structure Telescope

AST-0507665
Peterson

This project supports US participation in the Primeval Structure Telescope (PaST), which is planned for a remote part of China, far from interfering transmitters. PaST is expected to be a Chinese/US/Canadian partnership. PaST will search for the hot regions around the first stars during the first billion years of the Big Bang, an early period far beyond the reach of current telescopes. PaST's unprecedented sensitivity will dramatically extend the frontier of observational cosmology. At the current level, this support provides only for continued US involvement, in preparation for a possible, later, larger role.